CRPA: Communicating Avatars: Artificial Intelligence + Computer Graphics = Innovative Science

This CRPA project will produce a human-like avatar exhibit for the Orlando Science Center that will verbally communicate with middle and high school grade visitors, engaging them in the subjects of computer science, artificial intelligence, and engineering. Human-like characteristics include features to match the demographics of the Center's clientele and verbal communication in the English language. In addition to discussing how avatars are developed and how artificial intelligence works, the avatar image will answer questions from the visitors on selected topics, including subjects from the media models of Avatar and IBM's Watson event on Jeopardy.

Considerable planning and research has gone into this project to make sure that the avatar is life-like and can engage in realistic dialog. The avatar images will resemble real individuals who have diverse demographic characteristics in order to enhance the human-computer interface. The system is designed to deal with background noise and antagonistic visitors. Evaluation at all levels (front-end, formative, and summative) will make the exhibit most effective and facilitate the goals of the project which are to inform the target audience on STEM subjects.

The desire to have electronic analogs of humans has been a goal for half of a century. This project builds on prior research in this area and is one of the most sophisticated contemporary models in the field. It is anticipated that this work may contribute to future applications in education and assistance for individuals with disabilities. Moreover, engagement with the avatar may ignite curiosity among young visitors and stimulate interest in science careers.